Upgrade of Analytical and Organic Instrumentation in Chemistry at DeKalb College

An infrared spectrometer and liquid chromatographs (LC) are being used to upgrade analytical, organic and health science chemistry courses at Dekalb. The LC is used in conjunction with a variety of classical wert methods to strengthen the analytic chemistry course. The Organic chemistry course is strengthened by the use of the IR as well as the LC. Experiments include analysis of the products of the conversion of cyclohexanol to cyclohexene and the conversion of salicycilic acid to aspirin and methyl salicylate. The LC and IR are combined in the separation and isolation of the compounds in various tablets such as Excedrin. The institution is matching the NSF grant with an equal amount of funds.